Polymer Science Curriculum for the 21st Century

A planning workshop is proposed whose first day is focussed on defining the needs in the Polymer Science curriculum in the 21st century and establishing a network of polymer science faculty to advance the curriculum. Strategies will also be considered for engaging high school students with research-based polymer experiments . On the day following the workshop, and as a prelude to student reseach presentations, faculty attendees will deliver a session to undergraduates designed to help them better understand and explore research presentations and publications.